Conference: A trainee-centered meeting to support RNA science in the upper Midwest

Recent advances in RNA science have transformed our understanding of biology and medicine, leading to new RNA-based therapeutics, vaccines, and diagnostic biotechnologies, while revealing fundamental biological mechanisms that inform our understanding of human health and disease. Continued progress in this rapidly expanding field depends on the exchange of ideas across diverse areas of RNA research and the training of the next generation of scientists. For more than 25 years, NSF has supported an annual regional conference that brings together researchers from the industrial Midwest and surrounding regions to share advances in RNA biology. The 2026 Rustbelt RNA Meeting will be held in Pittsburgh, Pennsylvania, on October 30–31, marking the conference's return to Pittsburgh for the first in-person meeting since 2014.

A distinguishing feature of this conference is its strong emphasis on trainee participation and professional development. Students and postdoctoral researchers typically comprise more than 70% of attendees (often as their first scientific meeting) and deliver the vast majority of oral presentations and posters. The meeting's highly interactive format provides an accessible introduction to the scientific community while fostering networking, mentorship, and career development. The 2026 program will include approximately 190 poster presentations (~70% by trainees) and more than 24 oral presentations (~90% by trainees) spanning a broad range of RNA-related disciplines. Optional workshops will provide training in emerging biotechnologies and career development. The meeting will also feature a keynote lecture by Dr. Alan Hinnebusch of the National Institutes of Health, a pioneer in the field of mRNA translation control. NSF support will be used exclusively for trainee participant support, enabling students and postdoctoral scholars to attend regardless of institutional resources. By lowering financial barriers to participation, the conference broadens access to scientific opportunities and helps cultivate the next generation of RNA researchers.